Crystal Growth in Falling Film Flow

ABSTRACT CTS-9200693 William E. Stewart The development of a numerical model and the optimization of the independent parameters for analyzing ice crystal growth in falling film flow is proposed. The model will be used to maximize the crystal growth rate in the falling film. The heat transfer and ice crystal growth simulation results will be compared to some previous experimental results. The numerical model will incorporate the interaction between the falling film fluid and the ice crystals by means of enhanced, effective thermal conductivities and reduced, effective viscosities. The proposed research will establish a numerical model that can be used to optimize the parameters that govern ice crystal growth to maximize crystal growth rate.